Cyberlogic

Cyberlogic is a semantic foundation for implementing evidential
transactions using the public key infrastructure (PKI). Evidential
transactions form the basis of frameworks for authorization and
authentication, electronic commerce, business workflow, and digital
government. Such transactions involve the exchange of physical evidence
in the form of identity cards, driver's licenses, money, checks, visas,
airline tickets, traffic tickets, birth certificates, and stock
certificates, as well as electronic evidence including PIN numbers,
passwords, keys, certificates, and nonces. Cyberlogic is an enabling
foundation for building and analyzing protocols that involve the
exchange of electronic forms of evidence.

Cyberlogic builds on evidence, public keys, and protocols. First, evidence
is encoded by means of numbers using digital certificates and nonces.
Second, public keys are predicates so that any information $i$ signed by a
private key corresponding to the public key $P$ entails that $P$ holds of
$i$. Indeed, the signed certificate is a proof for the assertion contained
in the certificate. Third, protocols are distributed logic programs that
gather evidence by using both ordinary predicates and digital
certificates. These simple building blocks can be used to
construct a rich variety of services in a variety of domains
ranging from digital government to access control in computer systems.

The public key infrastructure (PKI) provides basic services for
encryption, authentication, trust, authorization, and digital
certificates. Cyberlogic is a protocol layer over the PKI that serves as
a reliable foundation for evidential transactions. It provides a
standardized semantic and computational infrastructure for exchanging
evidence in electronic form. With such a foundation, it is possible to
design secure electronic versions of transactions that currently require
physical forms of evidence.